RUI: A New Technique for Short-Term Electric Load Forecasting Including Weather and Lifestyle Influences

The purpose of this research is to develop a probabilistic approach to short-term forecasting of electric load demand. The proposed approach accounts explicitly for weather and lifestyle influences. The single customer load demand is decomposed into two components: stochastic and periodic. The stochastic components (heating/cooling and water heater) are modeled via stochastic differential equations. Semi-Markov theory is used to determine the load of these components. The periodic part (the remaining part of the load, excluding the stochastic components) is determined using time series methods. The second phase of this research is to identify the parameters of the models of the different components. A validation of the proposed approach will also be performed. The second phase will use the data gathered during the Department of Energy experimental project on distribution automation and control at Athens Utilities in Tennessee. Since the basic building block of the proposed approach is the forecast at the single customer level, the accuracy of the forecast of the aggregated model is enhanced. The results of these investigations will provide the utilities with a more accurate technique for short-term load forecast at any desired level of the system. The availability of an accurate forecast will enable the utilities to make more confident decisions of operation and planning.